CPS: Medium: Collaborative Research: Co-Design of Multimodal CPS Architectures and Adaptive Controllers

The focus of this project is the efficient implementation of multiple control and non-control automotive applications in a distributed embedded system (DES) with a goal of developing safe, dependable, and secure Automotive CPS. DES are highly attractive due to the fact that they radically enhance the capabilities of the underlying system by linking a range of devices and sensors and allowing information to be processed in unprecedented ways. Deploying control and non-control applications on a modern DES, which uses advanced processor and communication technology, introduces a host of challenges in their analysis and synthesis, and leads to a large semantic gap between models and their implementation. This gap will be filled via the development of a novel CPS architecture by stitching together common fundamental principles of multimodality from real-time systems and related notions of switching in control theory and integrating them into a co-design of real-time platforms and adaptive controllers. This architecture will be validated at the Toyota Technical Center in the context of engine control and diagnostics.

The results of this project will provide the science and technology for a foundation in any and all infrastructure systems ranging from finance and energy to telecommunication and transportation where distributed embedded systems are present. In addition to training the graduate and undergraduate students, and mentoring a post-doctoral associate who will gain multi-domain expertise in advanced control, real-time computation and communication, and performance analysis, an inter-school graduate and an integrated summer course will be developed on control in embedded systems and combined with on-going outreach programs at MIT and UPenn for minority and women undergraduate students and K-12 students.